Acquisition of Instrumentation for Surface Analysis of Engineered Materials

This project is for the upgrade and acquisition of control electronics for a scanning Auger microprobe and X-ray photoelectron spectrometer that was donated to the university. This will have a beneficial effect on several different research groups at the university and allow many others to benefit from the facility. Examples of research projects that will make use of this instrument are investigations of ferroelectric films, mechanical studies of structural ceramics, analysis of Si-SiO2-metal device structures, investigations into plasma etching, electronic materials studies examining high-Tc superconducting thin film and bulk materials.